Theory of Learning Algorithms

This research deals with the theoretical investigation of learning algorithms that use examples and additional information from a teacher. It is motivated by the problem of knowledge acquisition in expert systems. The additional information considered includes queries to the teacher and training sequences devised by the teacher, that is, examples of similar or related phenomena intended to guide and simplify the learning process. The extension of the "probably approximately correct" concept to learning from positive-only examples, and the study of its relation to pseudo-random number generators are also proposed.